CEDAR: Second CEDAR/Step Workshop on High- and Mid-Latitude Plasma Structuring

Sojka ATM-9412170 A workshop will be held near Boulder, Colorado, from June 27-29 to discuss research and experiments on ionospheric plasma structures at middle and high latitudes. This is the second workshop convened by the HLPS (High Latitude Plasma Structures) Working Group of the CEDAR program. This workshop will also include members of the GAPS (Global Aspects of Plasma Structures) Working Group which is part of the international Solar Terrestrial Energy Program (STEP). The discussion topics will emphasize the modeling of middle and high latitude macro- and meso-scale plasma structures. ***